Code Scheduling Under Varying Parallel Resource Constraints

One of the major unsolved problems in high-speed computing is designing highly parallel machines that can exploit the latent parallelism inherent in applications. Current high-speed computers do not achieve their full potential, in part because of inefficient code scheduling that leaves hardware resources underutilized. The goal of this research is to obtain better execution speedup on high- performance parallel hardware by improving code schedules. The research will develop efficient code schedulers for parallel machines with multiple instruction streams and non-blocking memory references that have long and widely varying latencies. The difficulty of scheduling for machines of this type is that, while code scheduling is a static activity, the availability and latency of the hardware that is being scheduled varies during execution time. The PI has devised four different scheduling algorithms, with varying complexity(i.e., they generate schedules with varying efficiencies) and compilation costs. They differ in whether they schedule across instructions with data dependencies and whether and in what way they take into account variances in memory latencies and multiple instruction streams. The algorithm will be evaluated when combined with the Aiken/Nicolau software pipelining algorithm and assuming a highly parallel hardware configuration. The metrics for the performance study will be code schedule size, code schedule density, execution time and hardware utilization.